Advances in Optics for Biotechnology, Medicine and Surgery Conference held in Lake Tahoe, CA on June 2-5, 2013

1340558
Tunnell, James

Advances in Optics for Biotechnology, Medicine and Surgery is a small (~120 attendees), interdisciplinary conference focused on the field of biomedical optics. The conference will be held from the 2-5th June 2013 at the Granlibakken Conference Center and Lodge, Lake Tahoe, CA, USA. Sessions will be composed of invited talks from senior and rising experts focusing on key and emerging aspects of the biomedical optics field. A poster session will provide students and post-docs with ample opportunity to describe and discuss their work, and free-time and social activities will stimulate and promote networking. Substantial effort will be devoted to ensuring geographic, disciplinary, racial, gender and experiential diversity of our participants. Funding from the NSF will allow us to offset the registration costs of 4 students, 4 fellows and young investigators and 6 speakers. Biomedical optics encompasses the interdisciplinary development of new technologies that harness fundamental interactions between light and tissue. The field has already generated a wide range of imaging, diagnostic and therapeutic approaches that have impacted modern medicine. Biomedical optics has also had a profound influence on biomedical research, with advances in microscopy and in-vivo imaging tools keeping pace with the rapid development of transgenic fluorescent-protein in-vivo models and contrast agents with molecular specificity. With these two areas combined, biomedical optics is a continually evolving field impacting both medicine and the basic sciences.

Intellectual Merit : Biomedical optics advances are generally borne from the juxtaposition of engineering, physics, mathematics, biology, chemistry and clinical medicine. To train in this highly interdisciplinary field, one must master all aspects of optics, device development, data acquisition, modeling and analysis, in addition to a thorough understanding of the biomedical problems being addressed. Many breakthroughs have resulted from simply pairing the right technique with the right biomedical application; realizations that require open interdisciplinary discussion. Widespread adoption of new biomedical optics technologies also requires that end users receive training that allows them to appreciate the fundamental principles governing operation of a particular technology, and therefore both its benefits and limitations. As such, our field relies upon meetings that draw together experts from all facets of biomedical optics research, including scientists, engineers, clinicians and industry experts, to enable this cross-fertilization. The conference for which we are requesting support serves exactly this purpose: To provide a forum for sharing creative ideas across broad areas of engineering, basic science and medicine, as well as an opportunity for students, trainees and young investigators to diversify their knowledge and develop relationships with key leaders in the field

Broader Impacts: Biomedical optics is a term used to broadly describe almost any technology that exploits light for biomedical applications. The fundamental physics of light transport in tissue and fluorescence and absorption spectroscopy remain at the field core, yet every year sees the evolution of new technologies for light generation, detection and manipulation as well as new contrast agents, algorithms and biomedical applications, all of which quickly advance the field into new areas. Examples of this in the past 2-3 years include super-resolution microscopy approaches such as PALM and STORM, as well as opto-genetics; a new biological technique that allows excitatory cells to be switched on and off using light. So while this meeting will be the 13th in a series that has been running for over 20 years, every year has seen continual evolution of the program to encompass cutting edge new advances in the field. It is recognized, for example, that it is important for experts in optics to understand the principles, potential, and implications of new approaches such as opto-genetics, since their expertise could significantly improve the way that these valuable new tools can be utilized. Similarly, introducing chemists to the different optical approaches to implementing superresolution microscopy may lead to improved strategies for developing novel contrast agents. The unique format of this small meeting is highly conducive to intensive training at the cutting edge of our field, allowing new concepts to be introduced and then openly discussed.